Presidential Young Investigator Award: Environment Effects on Mechanical Properties of Composites

This research addresses the application of fracture mechanics developed for conventional strength materials to novel, new materials. In particular, research is conducted on the impact of environmental effects on the fracture mechanical properties of whisker composites.